Chemical Sciences and Society Symposia (CS3); July 2009, Klosterseeon, Germany

This award from the Division of Chemistry supports a unique international meeting, Chemical Sciences and Society Symposia (CS3). The CS3 will convene eminent high level researchers from each country to explore frontier chemistry research as well as its potential application to global problems. The global challenge identified for this pilot meeting is solar energy.

CS3 is a partnership with the funding societies and professional associations from the United States, China, Japan, United Kingdom and Germany. The series has the potential to be of great value to the global chemistry enterprise and to the world at large.